I-Corps: Translation Potential of Using Geopolymerized Mine Tailings for Construction Materials

This I-Corps project is based on the development of construction materials from mining waste. Mine tailings are finely ground residuals generated during mineral beneficiation and represent one of the largest industrial waste streams worldwide, with billions of tons generated and stored globally. The handling and storage of mine tailings are both costly and pose significant safety risks. This technology enables the conversion of mine tailings into high-value construction materials, including geopolymer bricks and lightweight aggregates. It provides a solution for mine tailings management while reducing reliance on virgin raw materials, lowering manufacturing costs and energy consumption, and creating new economic opportunities for the mining and construction industries. This process may reduce waste, mitigate liabilities, and create new products and revenue streams.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of mine tailings reuse as construction materials. Currently, conventional brick and lightweight aggregate manufacturing require sintering at temperatures exceeding 1000°C. This technology is based on geopolymerization, in which aluminosilicate-rich materials are dissolved in an alkaline solution to form a three-dimensional aluminosilicate network. The technology is designed to activate the naturally occurring aluminosilicate components within mine tailings to produce high-performance construction materials. In addition, this process requires only slightly elevated temperatures (40–70°C), substantially reducing energy consumption. This may be used to produce geopolymer bricks and lightweight aggregates with high mechanical strength, excellent acid and fire resistance, low shrinkage, low thermal conductivity, and effective immobilization of heavy metals and contaminants. The technology may reduce brick production cost and enable mining companies and construction materials manufacturers to convert mining waste into commercially valuable construction products.